Studies of Zeolite Catalysts of Control of Emissions: RedoxReactions and Cation Siting

This is a study of transition metals exchanged into zeolites or into silicon-containing aluminophosphate molecular sieves (SAPOs) as catalysts for redox reactions. The zeolites studied include silicon-enriched faujasites and other large-pore zeolites such as zeolite L and zeolite omega. The kinetics of reactions such as the reduction of nitric oxide with carbon monoxide or ammonia, the decomposition of nitrous oxide, and the partial oxidation of methane are examined. Emphasis is placed on how the coordination environments of the transition-metal cations in these materials are related to their catalytic behavior. Kinetic measurements are combined with studies involving isotopic tracers, and these findings are coupled with spectroscopic and calorimetric studies of the interactions of the cations with various adsorbate molecules. A goal is to determine the sitings of exchanged cations and the natures of their interactions with the zeolite (or SAPO) matrix, adsorbed gases, and other coexchanged metal cations. Spectroscopic techniques used include high-field magic-angle nuclear magnetic resonance, infrared spectroscopy (both midrange and far range), and Moessbauer spectroscopy. The issues being addressed are of considerable fundamental importance. In addition the systems under investigation may have direct application in partial oxidation in a variety of industrial settings, fixation of methane, automotive emission control, and acid rain amelioration. This is a collaborative effort between the Milwaukee and Madison campuses of the University of Wisconsin.